Pattern Matching in Vision and Molecular Biology

One of the roles theoretical computer science is to develop an algorithmic theory for various application domains. This research is motivated by some practical problems in computer vision and molecular biology. The main motivating problem in computer vision is that of searching aerial or satellite photographs. In this investigation, the problem is abstracted to several "pure" subproblems - local errors, scaling, and rotations - and efficient solutions are sought. The research then attempts to synthesize the subproblem solutions and obtain a general algorithm. The tools for the solution involve techniques that give rise to more general algorithmic and data structure problems. This research also addresses problems stemming from molecular biology. Recently, several researchers presented efficient dynamic programming methods for determining the RNA secondary structure. New information shows that the secondary structure is more involved than originally thought. The researchers are investigating whether the problem is now NP- hard. The answer to that question will determine if efficient algorithms or efficient approximations to its solution will be sought.